Combinatorial Set Theory

The investigator proposes a program of research in axiomatic set
theory. The program involves looking at a number of different
questions, all of which involve combinatorial set theory and are
related to large cardinals and forcing; among the areas to be
studied are mutual stationarity, identity crises for large
cardinals, and combinatorial principles. The techniques to be used
include Radin forcing, iterated forcing and PCF theory.

Combinatorial set theory is a discipline whose goal is to take
familiar ideas about finite sets (such as counting, ordering and
permuting) and extend them to the context of infinite sets.
The theory is highly developed and has found applications
in several mathematical areas where infinite sets are used,
including topology and analysis. Progress on the
problems which are proposed by the investigator should increase our
understanding of infinite sets, and help forge tools which will be
useful to set theorists and workers in other areas.